Coordinating Humans and Automation: Calibrating Trust in Automation Using Sonification

This research focuses on the use of sonification to increase trust between humans and automated systems. Sonification is analogous to visualization and surpasses traditional auditory warnings by conveying a rich array of continuous dynamic information. The concept of trust provides a theoretical basis for using sonification to reveal the capabilities of automated systems and promote appropriate reliance. There are four objectives, 1) identify how sonification can calibrate trust, 2) expand the understanding of trust and its role in human-automation partnerships, 3) apply dynamical systems theory to describe human-automation coordination, and 4) evaluate the generality of sonfication for settings in which multiple people share control of automated systems. The proposed work contributes to the scientific basis of sonification and its relation to group dynamics and should benefit society by increasing human safety in automated environments.